Proof-of-Concept: Accessible Design Curriculum and Educational Materials

This project develops educational materials, textbook, CD-ROM, and supporting documentation for accessible-design learning. Accessible design conforms to standards of accessibility for persons with disabilities. The learning modules supported by these products are to be integrated into existing engineering-design courses. The product is applicable in engineering curricula as well as design organizations of industry. The proof-of-concept includes prototype validation in a faculty-student setting as well as an industry-training environment.